Doctoral Mentoring Consortium at the Fourteenth International Conference on Autonomous Agents and Multi-Agent Systems

The aim of this project is to support the travel of US-based doctoral student researchers to the
premier international conference on autonomous agents and multi-agent systems and their participation
in the Doctoral Mentoring Consortium held in conjunction with it. The Fourteenth International
Conference on Autonomous Agents and Multi-Agent Systems (AAMAS 2015) will be held in Istanbul,
Turkey, May 4-8, 2015. AAMAS is the premier conference devoted to all aspects of research and application of agent technology, a key area of research with applications to the success of the WWW, electronic
commerce, digital libraries, robotics, personal agents, and virtual humans. All students
awarded travel funding will participate in a Doctoral Mentoring Consortium in which they will
present their research to other student researchers and receive in-depth feedback from a group
of senior researchers. Students will also attend the conference, which has a rich technical
program complemented with an array of workshops, tutorials and other events. The wide variety
and significance of the topics typically presented at AAMAS, in both the technical program
and the workshop program, provides opportunities for students to share, exchange and learn
from the best in the field.